TEA Center Renewal: Environmental Research Center

A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the intellectual leadership of TCUP institutions so that they can address scientific or engineering needs or interests, specifically for their tribes or communities, or broadly for the Nation. The TCUP Enterprise Advancement Centers (TEA Centers) strand allows TCUP institutions to capitalize on their investments in STEM instructional and research capacity. This project provides renewal funding for the Environmental Research Center, a TEA Center at Chief Dull Knife College (CDKC) in Lame Deer, Montana. This project aligns directly with the goal of the TEA Centers strand, and moreover has a direct economic impact on the citizens of Northern Cheyenne Indian Reservation by maintaining a workforce loop from education to training for community needs to employment by Tribal, state, and federal agencies, as well as private sector industries, while also providing feedback to grow and improve STEM education.

The renewal of the Environmental Research Center continues to expand CDKC's role of serving the Northern Plains as a research, monitoring, and training center. To meet the needs of the communities, the following goals are being met: (1) develop and expand community collaborations focused on natural resource sustainability, restoration, food growth, and environmental stewardship, (2) continue providing water quality testing and environmental monitoring services for communities across southeastern Montana, including surface water, groundwater, wells, and independent water sources, (3) strengthen pathways from internships to professional careers by including interns in research, outreach, and collaborative community projects, (4) expand the Center’s drone initiatives to educate and work collaboratively with community and tribal members in practical applications of drone technology, such as firefighting support, crop spraying, environmental surveying, and land management.